CSR--PDOS: Exploring Cluster-Based Data Center Design Space for High Performance and Dependability

Clusters have emerged as the most cost-effective solution to
design high performance and dependable data centers,
which are increasingly being deployed
for a wide variety of Web-based services.
However, data centers contribute to a significant part of the
overall delay, which is likely to grow with the increasing use
of dynamic Web contents. Furthermore, (24x7) server availability
to host critical services appears to be a far-fetched objective.
Therefore, design of high performance and dependable data centers
has become a critical issue.

The objective of this research is to investigate the design of a three-tier
data center consisting of a front-end Web server, a middle-tier application
server, and a back-end database server using the industry standard,
InfiniBand Architecture (IBA) communication paradigm.
A prototype data center will be implemented on a 96-node
IBA-connected Linux cluster to investigate three research issues
using real applications and benchmarks.
The issues are quantifying the performance benefits of
using a user-level communication technique such as IBA instead of
the standard TCP/IP stack, proposing new performance enhancement
techniques for data centers, and characterizing the impact of different
faults on server dependability.

The research will enable effectively utilizing the IBA communication mechanism
for designing multi-tier data centers, quantifying the end-to-end performance
benefits of using IBA, developing fault-tolerant mechanisms for highly available
data centers, and understanding the design tradeoffs between high performance
and dependability.
In addition to fostering new research directions in
several areas of data center design, the outcome of this research
is likely to have significant commercial interests.